Mathematical Sciences: Wave Propagation in Cardiac Tissue

Keener 9626334 The investigator develops and uses mathematical models and tools to study the electrical activation of cardiac tissue. The two main interconnected emphases for this project are to develop useful numerical algorithms to solve model equations on physiologically realistic domains, and to use analytical and numerical tools to study the dynamics of normal and reentrant waves, their initiation, subsequent dynamics, and termination. Particular emphasis is placed on the development of fast, accurate, implicit numerical methods for integrating nonlinear partial differential equations on irregular three-dimensional domains. The overall purpose of this research is to increase the fundamental understanding of life-threatening cardiac arrhythmias, their mechanisms and possible control. To do so, however, requires a substantial effort to develop and improve the numerical algorithms for the efficient use of high performance computing.